Increasing Undergraduate Involvement in Experimental Psychology

This project is increasing student participation in experimental psychology by having students experience many important experiments as subjects, as experimenters, and as data analysts. The addition of six computers to the lab enhances participation as subjects at the introductory levels. At the upper division level, students are involved in designing and implementing experiments, and in statistical analysis of data from experiments addressing contemporary issues in psychology. Many experimental psychologists now use computers to display stimuli and record responses, and statistical analysis of data is also largely computer-based. Improvements in software now permit more students to learn to set up their own experiments for course projects and honors research. The aim is for students to see experimentation as a part of their experience in psychology, thus enhancing the teaching and learning of content areas, methodology, and statistics. The university will contribute an amount equal to the award.